Arithmetic Progressions and the Hypergraph Regularity Method

The proposed research focuses on an
interplay between deterministic combinatorial structures and
random combinatorial structures.
Szemer\'edi's regularity lemma, a
central component in this interaction, asserts
that every graph
can be decomposed into constantly many random-like subgraphs. From
this random-like behavior provided by Szemer\'edi's lemma,
one may find and enumerate subgraphs
of a fixed isomorphism type, culminating in what is known as the regularity
method for graphs.
This method
has proved useful in graph theory, combinatorial geometry,
combinatorial number theory and theoretical computer science.
Recent work of the PI and collaborators developed the so-called
hypergraph regularity method which extends the regularity method
for graphs to uniform hypergraphs, and in turn, provides alternative proofs to some well-known
partition theorems originally due to Szemer\'edi, Furstenberg and Katznelson.
The hypergraph regularity method should prove useful to many extremal combinatorial problems.
The PI will investigate such applications. The PI also aims to develop structural and algorithmic
extensions of the hypergraph regularity method.
Such extensions would deepen our understanding of quasi-random hypergraph theory
and further the reach of the current hypergraph regularity method
as an applicable tool in combinatorial mathematics.

Combinatorics provides a principle mathematical foundation for
computer science, and in particular, theoretical computer science.
Many difficult problems in computer science, in turn, seek efficient algorithms for solving or estimating solutions to combinatorially-based problems.
The algorithmic version of Szemer\'edi's regularity lemma (developed more than 10 years after Szemer\'edi proved the original) transforms many existential results proved by the graph
regularity method into constructive solutions to corresponding algorithmic questions.
In particular, graph regularity methods have proved invaluable to the
area of property testing, important in theoretical computer science.
A fully algorithmic version of the hypergraph regularity method would
provide an important tool for solving algorithmic questions
concerning hypergraphs. The PI will investigate such an algorithmic extension and will
consider some of its applications to problems in computer science.